Acquisition of Multiprocessor Computer

Partial funding (50%) is requested for purchasing a 500 MHz NMR spectrometer to be shared by ten research groups. Michigan State University will provide a 50% match for the acquisition of the instrument. The spectrometer will be dedicated to the structural analysis and mechanistic studies of biomacromolecules, including proteins (H. Yan, W. Wells, R. Hausinger, R. Hollingsworth, J. Preiss, S. Triezenberg and J. Frost), nucleic acids (K. Dunbar and D. Nocera), carbohydrates (R. Hollingsworth and F. Dazzo), and metabolites (J. Frost). It will be located in the Max T. Rogers NMR Facility, a shared resource open to the University research community. The NMR Facility staff will be responsible for the maintenance and operation of the instrument. Acquisition of the requested instrument will greatly enhance the research infrastructure at Michigan State University. It will impact all the research projects that require NMR characterization, facilitate development of collaborative research in biomolecular NMR, enhance graduate and postdoctoral training, and help recruitment of new faculty, graduate students and postdoctoral fellows. It will also impact the expanding activities in structural biology and biotechnology on the campus.